Equipment for a Digital Signal Processing Laboratory

An interactive digital signal processing (DSP) laboratory to augment classroom courses in discrete systems and digital signal processing (DSP) is developed. All students pursuing experimental scientific fields have a need to understand the principles of time series data, sampling, representation, filtering, and spectral analysis. With the equipment to be acquired a set of closed and open-ended interactive laboratory exercises to demonstrate these fundamental principles, to challenge the student's creativity, and to develop his intuition and expertise in DSP is developed. The lab will be based on a network of computers which contain a commercial DSP circuit, interactive graphical display and sufficient computational power to perform simulation and analysis in real time.